Mathematical Sciences: Advanced Training in Modern Analysis

9500288 Wolf This award is for the support of graduate students in Analysis at the University of California, Berkeley. This group of analysts consists of 14 established researchers whose work covers the many subdisciplines of Modern Analysis. Currently, the Modern Analysis program funds many of these investigators through individual awards. This award consmlidates the graduate student support for a two years period. ***